Temple University Science Math Assessment Research for Teachers: TU-SMART

This five-year research project would study the impact of emphasizing formative assessment strategies in concurrent undergraduate methods courses and STEM content courses on the subsequent teaching practices of these pre-service teachers and their students. The study focuses on future middle school STEM teachers. It will include two treatment cohorts and a control group from Temple University, an urban institution with a 33% minority enrollment. The mixed methods research design will examine the impact of the treatment on teachers' practices during their practicum and induction years and on the STEM achievement of their middle school students.